Applied Optics and Light Instrumentation for Graphic Art

This proposal addresses the problem of Applied Optics and Light Instrumentation for the Graphic Arts student. The program is directed toward a non-science and Publication audience. It is proposed to set up experiments using equipment from the graphics industry rather than the "traditional" introductory physics experiment in lights. This is a program which should contribute to an increase in scientific literacy. //